The Mathematics Underlying Cryptography

As our e-mail, medical, financial and other personal information is migrating to the Web, the need to simultaneously guarantee privacy, availability of data, and correctness of computations is a paramount concern for NSF and for our society. This workshop will explore mathematical tools for addressing these needs. The workshop will also address the ongoing concerted effort to create practical solutions and new technologies based on these mathematical developments. The workshop will be open to all potential participants, and the findings (including videos of presentations) will be distributed to the public for comments and engagement. This award will support students to attend the workshop, and the PI will actively recruit scientists from a diversity of backgrounds. The mathematical tools that will be considered include integer lattices, elliptic curves, bi-linear and multi-linear maps, codes, and computational learning theory.